Dissertation Research: An Investigation of the Apparent Competitive Exclusion or Reduction of Anolis carolinensis byA. sagrei in Non-Wetland Habitats in Southern Florida

Convincing field demonstrations of interspecific competition are rare, despite frequent appeals by theorists for well-designed field experiments. Even when interspecific competition is clear, the relative importance of behavioral interference and competitive exploitation of resources remain in dispute. The recent colonization of southern Florida by the brown anole Anolis sagrei and the simultaneous decline of populations of the native green anole Anolis carolinensis suggest severe competition between these forms. This will be tested as follows: Large enclosures will be constructed in the field and stocked with populations of one or both of these species. Populations will be censused monthly over a period of two years in order to collect data on growth and reproduction. Competition will be unequivocally demonstrated if the equilibrium populations of one or both species are significantly lower in two-species enclosures than they are in one-species enclosures. If competition is found, it will be possible by examination of the demographic, reproductive, and growth data to identify the age/sex classes upon which competition most heavily falls, and thus deduce its mechanism.